Group Travel Support to the Workshop on Plasma Experiments in Laboratory and Space; Alpbach, Austria; July 1991

Partial or complete travel support is provided to permit graduate students, and some speakers, to attend a cross- discipline workshop on Plasma Experiments in Laboratory and Space, to be held in Alpbach, Austria July 1-6, 1991. The conference will emphasize areas of plasma physics of common interest to laboratory and space science, including such topics as: critical velocity, reconnection, ion cyclotron waves, beam driven instabilities, anomalous resistivity, double layers, collisionless shocks, non-linear and kinetic Alven waves, active space experiments, turbulence, and transport.